AMPATH StarLight Rio Grid Workshop

This funding will allow Florida International University (FIU) to contribute a key technology component to the 2002 AMPATH StarLight Rio Grid Workshop in Brazil. FIU has lead the nation in establishing research networking connectivity to South Amercan through the AMPATH Project. A corporate donation has been made to provide high-speed connectivity between StarLight in Chicago and AMPATH in Miami and thus from Miami and to Rio. The proposal forms a partnership with three scientific applications. This will bring an un-paralleled level of network services to them for an appropriate tuning period and then for the length of the conference. The workshop has a high likelyhood of inciting subsequent non U.S. investment in networking infrastructure that would benefit currently challenged U.S. programs.